Magnetic Microscopy Using Superconducting Quantum Interference Devices

Project Description (Technical): This project will develop a new measuring instrument, called a magnetic flux microscope, which is based on a SQUID (superconducting quantum interference device) sensor. The objective is to obtain images of magnetic fields near surfaces with a resolution at the micron length scale. The instrument should be able to scan an area one centimeter on a side, resolve features as small as 1 mm and sense magnetic fields as small as 10 December 22, 1992picoTesla. The instrument will be able to sense currents as small as 12 picoAmperes. The new instrument will be used in investigations of superconductivity, and will address issues such as the pinning and motion of individual vortices. In addition, the instrument will be used to obtain images of a range of magnetic materials, as well as working microcircuits. Project Description (Non-Technical): This project continues the instrumental revolution based on surface microscopy techniques such as scanning tunneling microscopy and atomic force microscopy. In this case a new surface microscopy is being developed to sense not atomic positions but the magnetic fields produced by the atoms and molecules. It will sense surface atoms and subsurface atoms as well. The sol-called magnetic flux microscope will be used to study superconductivity, magnetism and will also be used to sense current flow in work microcircuits. The technique should provide new information about the fundamental aspects of superconductivity and magnetism and will provide a new diagnostic tool to improve microcircuit performance.